Expanded Scope and Methodology in Instrumentation Education Focused on Organic Chemistry in the Two Year College

The aim of this project is to improve course content in chemistry laboratories at the institution, with emphasis on organic chemistry. Implementation involved acquisition of Fourier transform infrared spectrophotometer (FTIR), a modern ultraviolet-visible recording spectrophotometer (UV-VIS), two gas chromatographs (GC) and other accessories. Student have direct hands-on experience with these instruments and have acquired skill in interpreting the measurements they provide. FTIR and UV-VIS are used for molecular structure determination and have allowed enhanced knowledge of structure/property interrelationships. The new instruments are used in conjunction with computer-assisted molecular graphics and molecular mechanics methods. New student exercises have been implemented which take advantage of the increased capabilities of the equipment. GC is a valuable adjunct to these methods because it allows rapid separation, identification, and quantification of organic substances. The institution contributed to the project in an amount equal to the NSF funds.